Collaborative Research: An experimental study of broadcasting protocols for video-on-demand

One of the most promising approaches to making video-on-demand services more competitive is to continuously broadcast the most frequently requested videos. This research addresses three important limitations that are common to most existing broadcasting protocols for video-on-demand.

A first research direction is the development of broadcasting protocols that can handle compressed videos having variable bandwidth requirements. The performance on these new protocols will be evaluated using a representative set of videos in the MPEG-2 format used by DVD.

A second research direction is the efficient implementation of interactive functions analogous to those existing on a VCR. These functions will allow customers to pause, move backward, and move forward as if they were watching a videocassette.

A third research direction is the design of broadcasting protocols that can adjust their broadcasting schedules to all observed changes in the request arrival rate. As a result, these dynamic broadcasting protocols will perform equally well at peak hours and at hours of lower demand.

All of these broadcasting protocols will be demonstrated on a very simple testbed consisting of a single workstation broadcasting a few specific videos.

This is a collaborative research project between the University of California, Santa Cruz and the University of Houston.